Query Optimization in Temporal Databases

While implementing temporal data models can dramatically increase the expressive power of a database management system (DBMS), processing efficiency is critical to its success. The potentially enormous sizes of historical data, coupled with the complexity of many temporal operators, pose challenges to the practical implementation of a temporal DBMS. In this project, key issues related to the optimization of temporal database processing are investigated. The focus of the work is on joins which are found in the most common and costly queries. Optimization algorithms for the various join operators, data organizations, and data structures are be developed. An essential component of the optimization process is estimating the size of intermediate results. Temporal relations are distinct from snapshot ones, and conventional estimation techniques are inadequate. Consequently, a new mathematical approach to estimating selectivities for temporal data need be developed. As part of this project the alternative algorithms are first be simulated and analyzed. Then two prototypes (one on top of an existing relational DBMS, while the other is a direct implementation of important temporal operators) are built to further evaluate the optimization concepts. The results of this research will have an impact on database technology by providing a methodology for development of efficient temporal database systems.